A Workshop on Structured Design Methods for MEMS; November 12-15, 1995, Pasadena, California

This is a proposal to hold a workshop involving about forty leading researchers from academia and industry to discuss: 1) the importance and value of Structured Design Methods for MEMS; 2) the research opportunities in this area, and, 3) the likely increase in effectiveness of MEMS design utilizing these methods.